'Strings 2000 at The University of Michigan, July 2000'

The conference "Strings 2000" will be held at the University of Michigan July 10-15, 2000. This will be a major conference devoted to superstring theory and its M-theory generalizations, which hold promise of unifying all the fundamental forces of nature. There has been significant recent progress in this area, including the discovery of "duality relations" showing the equivalence of seemingly unrelated theories. This conference, at which many leading scientists in superstring theory will exchange ideas, is very important to further progress.